Towards a Consistent Theory of Rotation and Mixing from the Pre-Main Sequence to the Horizontal Branch

Pinsonneault, Marc AST-9731621 Drs. Pinsonneault and Terndrup will study stellar rotation and mixing in low mass stars, by developing theoretical models that incorporate new input physics and model angular momentum transport and mixing, which are constrained by observed data on stellar abundances and rotation. They will begin with models appropriate to main-sequence stars, with application of mixing scenarios to the problem of light element (especially Lithium) abundances as a function of age, rotation, and composition. A key goal is to construct a physically self-consistent model which simultaneously explains both mixing and the evolution of angular momentum. Successful main-sequence models will then become the starting point for models of evolved red giant stars, which will test the theory with observations of abundance anomalies and horizontal branch rotation. ***